Planning Workshop for a Computational Linguistics Olympiad

Linguistics is not included in high school curricula. Nevertheless,
it is a rich area for careers in academia, education, government,
national security, and information technology. It is also important
as as cognitive, social, and behavioral science. Computational
Linguistics combines linguistic analysis with mathemetical and
algorithmic considerations. As a sub-area of Human Language
Technologies, it is one of the scientific bases of information
technologies involving speech, information retrieval, and universal
access. In this project, more than 30 faculty and graduate students
in Computational Linguistcs are collaborating to plan a Computational
Linguistics Olympiad (CLO) contest targeted at high school students.
The CLO as we envision it will include linguistic analysis as well as
algorithmic thinking in order to attract students who might pursue
careers in Human Language Technologies. An ideal contest would
identify talent independent of training. Therefore, skills like
computer programming, which are not evenly distributed across gender
and social class, should not be required. The intended outcome of the
CLO is to identify talented students so that they can be advised to
get the higher education they need in order to work in the field of
Human Language Technologies, with the ultimate goal of increasing the
size and diversity of the pool of future researchers in Human Language
Technologies.